Spatial Modeling, Analysis and Prediction of Nonstationary Environmental Processes

Abstract:

SPATIAL MODELING, ANALYSIS AND PREDICTION OF
NONSTATIONARY ENVIRONMENTAL PROCESSES

Montserrat Fuentes, North Carolina State University

Richard L. Smith, University of North Carolina, Chapel Hill

Spatial statistics is one of the major methodologies of environmental
statistics; its applications include producing spatially smoothed or
interpolated representations of air pollution fields, calculating
regional average means or regional average trends based on data at a
finite number of monitoring stations, and performing regression
analyses with spatially correlated errors to assess the agreement
between observed data and the predictions of some numerical model.
However, the most commonly used spatial statistics methodology, also
known as geostatistics or kriging, is essentially based on the
assumption of stationary and isotropic random fields. Such
assumptions cannot be expected to hold in large heterogeneous fields.
The research described here concentrates on nonstationary spatial
models. Some new models are introduced, as well as new fitting
methods based on spectral analysis. The applications include three
real data sets: (i) monitoring data for nitrate fields compared with
Models-3 output as part of the process for assessing compliance with
the Clean Air Act Amendments of 1990; (ii) modeling the spatial
distribution of particulate matter fields, as one of the components
needed for an improved risk assessment of human health effects of
particulate matter; (iii) developing statistical models for spatial
temperature fields and applying them to the attribution of various
"signals" produced by climate models - in particular, this
methodology will permit improved assessment of the extent to which
observed global climate change may be attributed to anthropogenic
influences.

In more detail, the new statistical methodology concentrates on two
approaches to nonstationary models: a spatial deformation approach
due to Guttorp and Sampson, and an approach where the field is
represented locally as a stationary isotropic random field, but the
parameters of the stationary random field are allowed to vary
continuously across space. Kernel functions are used to ensure that
the field is well-defined but also continuous. Some combination of
the two approaches may be needed for fields with are neither
stationary nor isotropic. New fitting algorithms are developed, using
both space domain and spectral approaches; in cases where the data
are distributed exactly or approximately on a lattice, it is argued
that spectral approaches have potentially enormous computational
benefits compared with maximum likelihood. The methods are extended
to prediction/interpolation questions using approximate Bayesian
approaches to account for parameter uncertainty. We develop
applications to obtaining the total loading of pollutant
concentrations and fluxes over different geo-political boundaries, to
risk assessment for particulate matter random fields, and to the
attribution of an observed climate record to various components
produced by numerical climatic model, the latter forming a new
approach to the fingerprint estimation technique developed by
climatologists.
This program is being jointly funded by the Division of Mathematical Sciences and the Office of Multidisciplinary Activities from the Directorate of Mathematical and Physical Sciences.